PYI: Loop Transformations and Scheduling Strategies for Parallelization Software

A framework for studying the interactions among loop transformation and scheduling strategies and a parallelization tool that allows experimentation with alternative parallelization strategies will be developed. The tool will accept architectural information to assist in the application of transformations and selection of schedules. The results obtained from studying these interactions will be applied in the development of an integrated approach to loop transformation and scheduling. In this approach the loop parallelization process will be composed of three major phases. The first phase, the parallelism detection phase, will perform dependency analysis to identify loops that can be executed in parallel. In addition, it will perform transformations, such as renaming, to convert sequential loops into parallel loops. The second phase, the parallelism scheduling phase, will select an appropriate scheduling strategy. The goal here will be to choose a strategy that involves minimal run-time scheduling overhead and results in schedules that provide good load balancing and high processor utilization. The final phase, the parallelism enhancement phase, will transform the loops to increase the efficiency with which parallelism is exploited. The transformations that exploit architectural characteristics will be applied to reduce synchronization and communication overhead. Any decisions to utilize special hardware features will be made in this phase. Decisions of activities performed in the later phases will be based upon the decisions made in the earlier phases. An integrated strategy will allow convenient application of transformations after schedules have been generated. It will also ensure that the scheduling strategy does not undo the effects of transformations that had been applied.